IDP: WISE Scholars Research Program

The Lucile B. Kaufman Scholars program is designed to encourage undergraduate women in engineering to pursue graduate degrees in engineering. The program will include 20 nominees and 8 alternates with junior status in engineering. The program builds on two components: professional development and community building. The professional development component includes an 8 - week summer research experience, culminating in a formal research symposia. The community building component includes mentoring and networking events designed to create a supportive community environment for participants. Mentors will also participate in diversity training workshops. Students completing academic year activities in the program are awarded the title Lucile B. Kaufman Scholar," receive a $500.00 scholarship, and participate in the summer research experience, for which they receive a $1500 stipend. Participant scholars achievements will be compared to a comparative cadre of non-participant, but similarly motivated students